Estimating Econometric Models with Risk Terms

In recent years there has been considerable interest in estimating the effect of risk upon economic decisions. Applied studies have been made of the effects of risk upon foreign exchange markets, trade flows, output and unemployment, and stock prices. Generally the method used to model such effects has been to make the risk term a linear or quadratic function of some observed variables. There is increasing evidence from a number of sources that the resulting models are generally inadequate and that the effects are, therefore, measured incorrectly. The purpose of this project is to develop statistical procedures that enable much better specification of the risk term. A number of methods will be investigated ranging from the use of the residuals to identify suitable functions to capture the risk term to non-parametric estimation techniques. This research is important because it will develop new estimation techniques that will strengthen empirical research in economics.